Conference on Transnational Aspects of Legal Pluralism in Southeast Asia - Winter 1992, Chiangmai, Thailand

Sociolegal scholars have come to recognize that understanding interrelations between legal and social processes requires an appreciation of global interactions. There has been an imbalance in transnational information flows in analyzing global processes particularly in areas commonly classified as peripheral to modernized and industrialized countries. The Law and Society Association, in an attempt to start correcting this imbalance, is sponsoring a conference in Southeast Asia in the winter of 1991-92 with approximately 25 scholars, mostly Southeast Asians. The conference will be held in Chiangmai, Thailand and will focus on transnational dimensions of legal pluralism. The conference has three purposes: (1) to build an intellectual foundation for future collaborative research between Southeast Asian and Western sociolegal scholars by developing shared conceptual frameworks that will enable scholars from different research traditions to appreciate and use each other's approaches, methods, and findings; (2) to contribute to a developing globalist perspective on legal pluralism by using a dual lens that considers both the influence of transnational processes on local politics and epistemologies, and the ways that local interpretive contexts reshape transnational influences; and (3) to advance knowledge about transnational sociolegal processes in Southeast Asia by analyzing how various groups in the region have influenced each other in developing legal responses to religious movements, demands for human rights, and international feminism. By bringing transnational issues more explicitly to the forefront, conference discussions will contribute toward developing a better understanding of the origins and meanings of pluralism in Southeast Asia and of the various interpretive contexts in which Southeast Asian law and society can be viewed. Conference papers and introductory essays will be published in an edited volume which will include a discussion of the theoretical issues involved in developing a globalist perspective on legal pluralism. In addition to contributing to our understanding of transnational sociolegal issues, the conference will help to build and strengthen a community of international scholars.